DISSERTATION RESEARCH: Coevolutionary Diversification in Septobasidium, a Fungal Symbiont of Scale Insects

Nontechnical Abstract

This research focuses on the biology of Septobasidium, a fungal parasite
on scale insects. Scale insects are common agricultural and horticultural
pests, and Septobasidium is a fungus that sterilizes the insects that it
infects. However, colonies of Septobasidium require both infected and
uninfected insects to survive. Because Septobasidium lives in this complex
association with its host scale insects its diversification is expected to
be tightly linked to diversity and diversification in host scale insects.
This research seeks to elucidate any correlative patterns of
diversification in the hosts and parasites and to determine the processes
that lead to the formation of those patterns. The proposed research has
two main parts. The first part uses DNA sequence data from both fungi and
host insects to examine large-scale patterns of host association and
cospeciation that structure diversity within the symbiosis. Phylogenetic
methods are used to infer the history of hosts and parasites, and these
reconstructed histories are compared to determine how host evolution is
related to parasite evolution. The second part implements methods to
analyze DNA sequence data from multiple populations of Septobasidium
species from across the southeastern United States in order to identify
processes that generate the large-scale patterns. Population processes
such as migration and dispersal are estimated from DNA sequence variation
separately and simultaneously for both hosts and parasites. Comparing
these processes from several different fungal species with different host
insects and ecologies but from overlapping geographic ranges will
determine how strongly the host and parasite population processes
influence each other. Combining the two major parts provides insight into
evolutionary diversification in this symbiosis and represents the first
study to apply critical genetic approaches to understand the ecology and
evolution of this classic fungus/ insect relationship.
This study benefits the public in several specific ways. This study
improves cross discipline communication through collaboration of a
mycology student and an expert entomologist. The study also provides
opportunities for undergraduate students to gain research experience.
Finally, the research furthers understanding of fungal/ scale insect
parasitism that may lead to biological control of plant pests.